RET Site: Feel the Force: Bringing Mechanobiology to 6-12 Classrooms

The Feel the Force RET site at the University of Pennsylvania addresses the critical need to strengthen STEM education by providing high-quality, effective professional development experiences anchored in mechanobiology for middle and high school teachers. Through immersive, hands-on summer research experiences in mechanobiology – the study of how physical forces influence biological processes in plant and animal systems – teachers gain firsthand knowledge of modern STEM by conducting research at the interface of multiple STEM disciplines. Throughout the program, teachers collaborate with mechanobiologists and STEM education researchers in the design of hands-on, STEM-integrated curricula to bring into their classrooms. The design of the Feel the Force RET breaks down traditional academic silos and equips teachers with the knowledge, confidence, and tools to integrate engineering design practices, scientific inquiry, and interdisciplinary problem-solving into their classrooms. The program recruits middle and high school educators from the School District of Philadelphia as well as surrounding suburban and rural districts. Thus, it provides access to high-quality STEM professional development across various educational settings. Participating teachers return to their classrooms with a researcher’s perspective and classroom-tested, standards-aligned lesson plans that connect scientific concepts to real-world applications in health, medicine, and engineering. The project advances the National Science Foundation’s mission by promoting scientific literacy, national welfare, health, and STEM education. Through sustained partnerships between researchers and teachers, the program further seeks to increase student interest in STEM and prepare the next generation of innovators and problem-solvers who will contribute to the nation’s health and technology leadership.

The goal of the Feel the Force RET site is to support 10 middle and high school STEM teachers annually through a six-week summer research experience and sustained academic-year professional development. This site is organized around four foundational pillars: plant and animal systems, integrated biology and physics principles, engineering design practices, and multi-level pedagogical approaches. The summer program begins with an intensive "Mechanobio 101" introductory week of workshops and activities. Teachers are then paired in interdisciplinary teams and embedded for five weeks within faculty laboratories across the University of Pennsylvania's Schools of Engineering and Applied Science, Medicine, Dental Medicine, and Arts and Sciences where they actively contribute to ongoing experimental and computational research projects. Research experiences include viscoelastic testing of biological and synthetic hydrogels, profiling cellular metabolism under mechanical stress, investigating tissue stiffness and mechanosensing, modeling collagen architecture in bone scaffolds, and designing physical transport systems to mimic molecular motor coordination. In parallel, participants collaborate with STEM education faculty and students from Penn’s Graduate School of Education (GSE) in dedicated weekly Friday working groups to co-design Next Generation Science Standards-aligned classroom modules that incorporate hands-on activities, low-cost biomimetic models, and emerging technologies like artificial intelligence and virtual reality. Sustained academic-year support includes quarterly professional learning community meetups, equipment loans, and classroom visits from university collaborators to facilitate implementation of newly developed curricular materials. Optimized curricula are disseminated widely via peer-reviewed practitioner journals and other educational outreach channels. Program efficacy, knowledge gains, and pedagogical impacts are rigorously assessed through an external mixed-methods evaluation conducted by the College Research and Evaluation Service Team (CREST) at Arizona State University. Longitudinal impact on teacher self-efficacy and student learning outcomes is tracked through an external, IRB-approved mixed-methods evaluation protocol.